Fourier Transform Nuclear Magnetic Resonance Spectrometry in the Chemistry Curriculum

The Chemistry Department has identified laboratory improvement guidelines including the needs: to incorporate work using smaller and more complex samples, to emphasize real world chemistry, to use state-of-the-art instrumentation, to increase laboratory efficiency so that more experimental work can be done, and to increase the understanding of chemical health and safety. Acquisition of a 200 MHz FT-NMR Spectrometer with a variable temperature module will enhance all but the last of those principles in five of our upper division courses. Specific improvements include enhanced proton analysis, a new capability for 13C analysis, the computer controlled acquisition and processing of data, application of FT-NMR analysis to small samples, determination of kinetic and thermodynamic parameters, and special pulse sequences for simplification of complex spectra. In addition, the instrument will increase the range of projects available to undergraduates doing research.